Mathematical Sciences: Groups, Geometry and Algorithms

Shapiro plans to investigate questions in geometric group theory arising from the study of negatively curved, automatic, semi-hyperbolic and combable groups. He plans to use concepts developed recently by him and others to examine 3-manifold groups and an assortment of other groups which are geometric in character. He would like to see if certain standard results for co-compact groups of isometries of hyperbolic n-space can be extended to negatively curved groups, and would like to see in what ways the study of negatively curved groups can be used as a guide to the study of groups which act co-compactly on spaces of non-positive curvature.